CAREER: Coral Health Genomics: Transcriptome Analysis of two Caribbean Species and their Algal Symbionts

Coral reefs are shallow benthic communities that harbor the highest
biodiversity in tropical seas. These ecosystems are endangered due to global climate
change and anthropogenic pressure from coastal areas. Coral health has been
decaying at unprecedented rates in the past decades and is therefore in need of
immediate attention. A healthy reef requires a stable coral-algal symbiosis. Thus,
understanding the processes required for this mutualism is fundamental for coral
reef preservation. Examining how corals respond to bacterial pathogens can also shed
light onto how host-pathogen interactions may be the same or differ from processes
that affect symbiotic interactions. The use of high throughput gene expression profiling
(transcriptomics) is a relatively new genomics approach that promises to enhance the
study of these interactions. This project will examine the transcriptome as it varies
from natural (i.e., healthy) to disturbed states (i.e., bleached or diseased) in two
coral-algal symbioses from the Caribbean: the corals Acropora palmata and
Montastraea faveolata and their dominant dinoflagellate symbionts.
The outcome of this research will contribute to the study of symbiosis as well as to
applied fields such as conservation and management, including the development of
coral health diagnostics. This project will train underrepresented minorities at the
University of California, Merced. This new campus offers higher education and
research opportunities to the disadvantaged Central Valley communities. This
educational effort will be enhanced by a partnership with the DOE Joint Genome
Institute to develop a course in Genome Biology. Students will also have the
opportunity to be involved in environmental podcasting through the UC Merced
website in three languages representative of the Central Valley populations
(English, Spanish and Hmong). The project will also continue with successful
outreach activities in collaboration the California Academy of Sciences through
teacher training workshops.